Developing Advanced Techniques for Interactive Machine Learning

9409370 Chen This a research planning award to investigate interactive machine learning techniques which integrate modern human-computer interaction technology with machine learning theory and applications with the purpose of building more powerful and flexible machine learning systems. The purpose in the integration of these two technologies, which up to now had been developed mostly in isolation from each other, is to obtain machine learning, inferencing, and interaction with teachers via multimodal interfaces which may incorporate natural language and other modalities in an integral system. The planning process includes an extensive literature search, study of possible interfaces for integration with learnability models, identification of critical issues in interactive learning research and learning algorithms, and preliminary design of a prototype for assessing the effectiveness of such learning systems.